West Virginia EPSCoR Cooperative Agreement

9871948 Calzonetti West Virginia EPSCoR Cooperative Agreement The West Virginia EPSCoR Cooperative Agreement with the National Science Foundation's EPSCoR Program will provide funding and support for West Virginia to build academic strength in two areas of importance to the state and nation: (1) high performance computing, communications, and software; and (2) identification technologies. These areas were recommended by the West Virginia EPSCoR Committee and represent areas of special consideration by the West Virginia Science and Technology Advisory Council. The high performance computing, communications, and software initiative involves a statewide computer science initiative to strengthen computer science instruction throughout West Virginia, a computing technology initiative to provide the latest computing technology for research applications, a scientific computing initiative to develop more high performance computing applications in science and engineering in West Virginia, and a business and industry initiative to improve the use of high performance computing and communications technology by West Virginia businesses. The identification technologies thrust builds upon recent EPSCoR and state investments at Marshall University by providing new core facilities in the College of Science to encourage collaborative research and research training with faculty members in the School of Medicine. At West Virginia University, investments in identification technologies research infrastructure will provide necessary expertise in mathematics, computer science, and electrical engineering for the university to build a program in these disciplines. West Virginia EPSCoR, housed within the Governor's Office of Technology, builds academic capability which is related to the state plan for science and technology and relates to other statewide development initiatives. Through this award, West Virginia will develop academic strength in these two R&D areas which will provide a foundation for future